NSF Young Scholars in Basic Sciences at Louisiana State University

A seven week summer program at Louisiana State University is proposed in which students entering the eleventh or twelfth grade at the end of the summer will: 1) take short courses on science subjects; 2) work in a faculty research laboratory; 3) participate in discussions on science careers, science methodology and scientific ethics; and 4) take weekend field trips to nearby scientific and industrial facilities. Six of the students will be commuters and six will reside in campus dormitories. (The residential students will be recruited nationwide.) The short courses in science will take place in the mornings of the first three weeks of the program. Participation in faculty research projects will start in the afternoons of the first three weeks, and continue full- time in the final four weeks. The twelve students will be divided among the six departments of the College of Basic Sciences: Biochemistry, Botany, Chemistry, Microbiology, Physics and Astronomy, and Zoology and Physiology. The students will be expected to develop a science project for submission to a science fair, junior academy of science, or Junior Science and Humanities Symposium. Follow-up activities will center around reporting on progress in the science project (for all students), but will also include classroom visits by staff members and a Saturday renewal session (for local students).